SURFing the Electronics and Electrical Engineering Laboratory REU Site

This award will provide funding to the National Institute of Standards and Technology (NIST) for a REU Site in electrical engineering and electronics, under the direction of Dr. David B. Newell. The project will involve up to nine undergraduate students for a 10-12 week summer program and internationally known NIST research engineers and scientists in individual research projects covering topics that include fundamental electrical measurements, national electrical standards, electric power systems, flat panel displays, electronic data exchange and micro-electro-mechanical systems (MEMS).